Mathematical Sciences: The Differential Geometry of PartialDifferential Equations

9505125 Bryant The proposed research lies in the area of exterior differential systems. The proposer seeks to classify systems of various types which admit non-trivial conservation laws, and to develop effective algorithms for computing integrable extensions of a given system. The proposer also wishes to understand the geometric invariants of a control system and to investigate control algorithms. The main tools to be used are Cartan's method of equivalence and Cartan-Kahler theory. Exterior differential systems generalize systems of partial differential equations; their study is heavily geometric and heavily computational at the same time. Control theory is used extensively in such areas as manufacturing and robotics; the proposed research may help to create more efficient design algorithms based upon a deeper understanding of the geometric invariants involved.